Mathematical Sciences: Turing Degrees of Unsolvability of Generic Sets and Isomorphism

The investigator works in the area of Recursion Theory, in particular, Turing degrees of unsolvability. Consider the natural partial ordering of the degrees of sets computable from A. The investigator will study this in the case where A is Cohen generic for n-quantifier arithmetic. A property is not easily seen to be satisfied in this ordering for n-generic A if it has more complexity than n. One needs a priority argument as well as a forcing argument. The investigator is developing this theory. He has provided a complementation theorem and minimal cover theorem. He plans now to study whether these results hold for l-generic degrees. He will also try to solve isomorphism and automorphism questions which are related to the homogeneity conjecture for the whole structure of Turing degrees. These questions have been open for more than twenty years. The degree of computability of a set is measured by its Turing degree. Higher degrees signify the need for more powerful computational principles. Although actual machines cannot embody these higher powers, the mind-set engendered by recursion theory has been fruitful for those studying machine computability.